Advancement Of Instrumentation and Physics Laboratories

9351096 Holliday The Department of Physics and Instrumentation at Athens State College is engaged in a major project to offer its students a quality, state-of-the-art laboratory experience to accompany classroom lectures. Computers, data acquisition software, and interfacing hardware are being used in an interfacing and instrumentation laboratory that offers students in our Instrumentation Technology and Physics programs a quality laboratory in which to work and exercise their creativity. Instrumentation students have opportunities to take scenarios of their own design and implement them on a modern system. These students also have the opportunity to take part in an individual or group design and implementation project. Many of these projects require students to design a system to measure some physical quantity associated with some physical situation, such as light intensity, temperature, or sound frequency. Many of the projects lend themselves easily to applications in the laboratories associated with our upper level physics classes. The equipment that has been acquired therefore serves to acquaint students in two disciplines with state-of-the-art techniques and apparatus, and each discipline does so within the correct context of that discipline; instrumentation students in the design and implementation of data acquisition systems, and physics students in the use of modern apparatus to perform experiments and analyze data. ***